Theoretical Calculations and Gas-Phase Ion Chemistry

This Career Advancement Award will enable Dr. Jeanette Adams to broaden her research program. She will work with an expert in theoretical studies to learn the approaches of ab initio and molecular mechanics calculations. She will also work with a leading practitioner in phase space calculations. Dr. Adams has developed a productive program in mass spectroscopy. The new directions she will undertake will enable her to apply theortical methods to the interpretation of mass spectroscopic processes. These methods will complement the experimental techniques she has developed. %%% This proposal builds a theoretical component into a strong experimental program in the technique of mass spectroscopy. It will help to develop new approaches to a powerful analytical technique with applications to the understanding of biological systems and metabolism